Oceanographic Technical Services

0070557
Carignan
This award to Skidaway Institute of Oceanography in Savannah, Georgia provides shipboard technical support, shore-based support, instrument maintenance and instrument calibration for researchers using R/V Blue Fin, a research vessel operated by University of Georgia System's Skidaway Institute of Oceanography as part of the University-National Oceanographic Laboratory System research fleet. The technical support awarded here will assist NSF-funded researchers conduct oceanographic studies in the waters along the southeast coast of the United States in CY2000 and beyond.
***